ITW: Women and Information Systems: Modeling the Impact of Work Values, Attitudes, and Attributes on Career Choices

Institution: Washington State University
Proposal Number: EIA 0089986
PI: Kristine M. Kuhn
Title: Women and Information Systems: Modeling the Impact of Work Values, Attitudes, and Attributes on Career Choices

This CISE Information Technology Workforce (ITW) proposal requests funds to assess whether women are more attracted to careers in Information Systems (IS) because of the perception that it is more people-oriented than other computer-related fields. Both men and women undergraduate students will be surveyed as to their work values, beliefs, and attitudes related to IS, and job preferences in order to test a model of the underlying factors driving gender differences with respect to career choices. This project has the potential to provide significant insights about factors affecting the recruitment and retention of women in IT majors